Cybersecurity Pathways for High School Education

According to the Cybersecurity and Infrastructure Security Agency (CISA) Strategic Plan (2023), the United States faces a lack of both qualified and diverse cyber professionals. Compounding these concerns, the US Bureau of Labor Statistics (2024), projects a 32% increase in cyber-related careers from 2022-2032, resulting in nearly 17,000 job openings annually. To address this need, this project will establish a one-year Dual Enrollment (DE) pathway for high school students to earn a Technical Certificate of Credit (TCC) in Cybersecurity Fundamentals. Over three years, 135 students will be recruited into the program, gaining hands-on experiential learning through collaboration with local school systems and industry partners. The project aims to improve the transition from K-12 to higher education and careers, improving student readiness in this high-demand field.

GPTC will structure the TCC as a two-semester program, integrating real-world simulations, professional interactions, and cybersecurity career exposure. Students will earn 18 college credits, developing foundational skills in network security, risk management, and digital forensics. The program culminates in a Student Showcase, where students present their skills to peers, faculty, and industry professionals. These activities will further strengthen the K-12 pipeline by establishing a pathway into for future enrollment into the college's cybersecurity program and other emerging technology fields, as well as an entry point into the workforce in a critical and high-demand field. This project is funded by the Advanced Technological Education program that focuses on the education of technicians for the advanced-technology fields that drive the nation's economy.